Science Workshops for Elementary Teachers and Principals

This project will increase the knowledge of science of K-6 teachers, improve the teachers' knowledge of the methodology associated with teaching science, explore recent science-related societal issues, and improve the ability to teach science to exceptional students (gifted and talented, bilingual, and physically disabled). The activities for elementary school teachers will be accompanied by in-service activities for principals, directed toward a quality K-6 science program and the role of the principal in developing and implementing the program. Three different, but related, programs will be offered. Fifty elementary school teachers will be selected for two of the programs. Twenty-five from within commuting distance of Lubbock will attend sessions on the Texas Tech University campus one night a week during the 1986-87 academic year and one six-week summer session in 1987. The other 25 participants, living beyond commuting distance, will attend corresponding sessions at Lamesa. Principals will participate in the third program consisting of two all- day workshops conducted in October and November of 1986. The objectives and description of an in-service program for teachers, the use of assessment instruments to evaluate K-6 science programs, and the role of principals as leaders in curriculum development will be presented. All sessions will include special programs and techniques to assist project participants in helping their colleagues in planning and teaching science. Selected teachers will meet with principals to formulate staff development strategies and plans. All activities will be based on the assumption that science in grades K-6 can be taught without elaborate equipment and supplies.